PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The research fellowship awarded to Jack W. Huizenga is in Algebraic Geometry. The host institution for the fellowship is University of Illinois, Chicago, and the sponsoring scientist is Dr. Izzet Coskun.